SBIR Phase I: High-Throughput Agile Robotic Manufacturing System for Tile Mosaics

This Small Business Innovation Research (SBIR) Phase I project will demonstrate a proof-of-concept
prototype of a high-throughput agile tile mosaic manufacturing system. Mosaics have proven to be a
great source of visual splendor for thousands of years. Despite its prominence in art and architecture,
mosaic is arduous to design and assemble by hand. The goal of this Phase I work is to prove the
feasibility of a programmable high-throughput multi-head robotic tile assembly system to enhance the
production agility of mosaic tilings. Research innovation in Phase I will merge the benefits of parallel
tile placement with robust high-capacity tile cartridges to radically decrease tile mosaic fabrication time
and associated tile mosaic assembly costs. The measurable objective of Phase I is a 5x increase in
production throughput over current state-of-the-art mosaic manufacturing technology, while enhancing
tile placement accuracy. The system will be capable of producing both template and “mass customized”
mosaics. In Phase II, the prototype will be refined into a commercial grade system, integrated with an
Enterprise Resource Planning system, and placed into service in Artaic’s production environment.
Successful Phase I/II demonstration will significantly lower the time and cost for manufacturing mosaics
and potentially revolutionize the $76B global tile industry.

The broader impact/commercial potential of this project goes beyond art, design, and architecture.
Robotic automation will lower the cost of mosaic and increase its societal impact in adorning public,
commercial, and residential spaces. The proposed research, if successful, will have a significant impact
on agile manufacturing. It will allow penetration into unforeseen markets by reducing the cost of highthroughput flexible assembly. The solution proposed by the research will be immediately applicable to
customers and partners, and potentially useful in parallel industries such as medical, pharmaceutical, food, consumer products, and others that will benefit from robotic agile manufacturing enabled mass customization. Agile mosaic manufacturing capability could revitalize the U.S. tile manufacturing industry and create job opportunities. The investigators estimate that a 5x production rate increase will enable a breakthrough price of $19.99, 75% lower than the competition, and for the first time achieve broad market affordability.